Magnetic Bearing Spindle

This research effort is concerned with the quantification and control of cutter tool path error for application in precision end milling operations. This error degrades the precision of the machined parts. The cutter tool path error will be quantifies, predicted, and controlled by use of a magnetically suspended spindle. The machined parts used in this experimental work will be microwave guides where part accuracy is important and where surface finish must be burr-free to avoid microwave signal attenuation. A magnetic bearing spindle will be purchased to enable this research.